Research Initiation: High-Level Digital Design Synthesis

In his initial research, Dr. Pangrle found more powerful models and new insights upon which to base a high-level synthesis system. His goal is to develop a design automation system which will synthesize optimized designs based on the user's behavioral description and design level constraints. This research concerns two issues in high-level digital design synthesis: behavioral description languages and design generation. His component model serves as a unifying thread that will influence the development of the entire system from the bottom up. Research on the behavioral description language and its compiler incorporates a new flow-graph model based on the component model. Research on the design generator involves development of new algorithms for allocation of operations in the flow-graph, and for a connectivity binder that binds components to the flow-graph.